Mathematical Sciences: Inverse Problems in Potential Scattering

Professors R. Lavine and A. Nachman plan to continue their joint work on some of the analytical problems still standing in the way of a complete theory of exact inversion in potential scattering. They propose to determine a general class of potentials and corresponding scattering amplitudes for which one can implement the Nachman-Ablowitz inversion method. The first objective of this research is to be able to characterize among all functions of energy and incoming and outgoing angles, those which are scattering amplitudes for local potentials. Further objectives are to find a reconstruction procedure for noisy data, study the stability of the inversion, and the possibility of reconstruction from partial knowledge of the data. Extensions to analogous problems with time-dependent scatterers will also be considered. Research of this type is aimed at solving the long standing problem of reconstructing the shape of an obstacle from measurements of reflected and scattered acoustic or electromagnetic waves.